Proyecto Futuro - Albuquerque

9802286 Zeigler The New Mexico Museum of Natural History and Science proposed to develop an outreach science and mathematics program with a parent involvement and teacher enhancement professional development component. The goals of the project are as follows: (1) to involve parents in their children's education; (2) to promote a positive attitude on behalf of parents and students toward science and mathematics; (3) to increase teachers' level of comfort in teaching science; and (4) to enhance teacher's confidence in the hands-on approach as an effective method for teaching science. The objectives for the parent component of this project are: acquaint parents with the national and state science education goals and standards; introduce parents to activities that can be done at home with children; and provide families with materials and activity sheets that can be used at home. The objectives for the teacher component of this project are: (1) to provide teachers with opportunities for increased communication with parents about science literacy for children; (2) provide professional development for teachers on the use of hands-on science activities in the classroom; and (3) to providing bilingual activity guides and kits containing materials to encourage science learning. The methods for implementing this project will be varied according to the needs of the target audiences. Parents and children will be engaged through parent workshops and multi-aged children's activities conducted at the museum by experienced science educators. The professional development for teachers' component of this project will include an extensive summer workshop, on-going training/ planning sessions during the school calendar year and session on the uses of the bilingual teaching manuals. The cost sharing for this NSF award is 46.7% of the total project cost.